Fast Beam Studies of Excited States of Atoms and Molecules (Physics)

Excited states of atoms and molecules may be studied in an environment relatively free of collisions and other perturbations by the use of fast beam techniques. The work in this proposal makes use of a very sensitive method of detecting such states using resonant laser excitation to a very weakly bound state followed by Stark ionization. Combined with this are very high resolution techniques of microwave spectroscopy. Experiments are proposed to carefully study the fine structure of high angular momentum Rydberg states of helium in order to test predictions of relativistic atomic theory. Similar Rydberg states of the H2 molecule will also be studied in order to yield precise new information about the H2+ ion. Another application will be a precise measurement of n=4 fine structure in atomic hydrogen which may lead to a new determination of the fine structure constant alpha.